Support of the Generic Mapping Tools

9529431 Wessel The Generic Mapping Tool is a software package used by several thousand scientists in the US and aboard which allows them to communicate their results in a compact manner via GMT scripts and manipulate their data and produce graphics. The PI will continue to maintain and support the package, implementing several new features, including graphic user interface, adherence to Adobe PS convention and time series support. It will also be interfaced with World Wide Web for greater accessibility by the community.